Localization of Deformation and Inelastic Deformation of Geomaterials

This project is to study shear localization in rock and other materials whose response is sensitive to the hydrostatic component of the stress. The main goal of the research is the theoretical understanding of the phenomena but a secondary aspect will be a correlation with experimental data.